SBIR Phase I: Sensor-based bra to measure breast milk output and monitor changes in breast volume before and after breastfeeding or breast pumping

The broader impact of this Small Business Innovation Research (SBIR) Phase I project will be significant to breastfeeding mothers who experience difficulties producing milk or knowing the volume of milk expressed during each session. While the benefits of breastfeeding throughout the first year of a baby’s life are widely accepted in the medical community, 60% of mothers do not succeed in sustained breastfeeding. The success or failure of breastfeeding is dependent upon a baby getting enough milk, and currently there is no objective method of determining the amount of milk a baby is receiving and how much residual milk remains in the breasts. The proposed device will collect objective data that will help mothers overcome challenges in breastfeeding and avoid further complications like clogged ducts and/or mastitis. Specifically, the device will help mothers track their milk output accurately, therefore reaching lactation goals, and allow mothers to ensure that babies receive the required nutrition to thrive during the early stages of life. The depersonalized data collected from the bra will enable medical professionals and researchers to gain insights about human milk production volumes and factors influencing milk production and infant health, thereby expanding horizons for further research in this field.

This Small Business Innovation Research Phase I project will create a proof-of-concept prototype bra that utilizes textile-based sensors to accurately measure the volume of milk expressed during a breastfeeding/breast pumping session. This project will lay important groundwork to create the first medical device using embedded fabric sensor technology to determine three data points: breast emptiness, milk volume output per session and changes in breast milk production over time. Research will focus on the design of the sensors and the form-factor of the bra that will facilitate capturing accurate data. There will be associated data capture and analysis demonstrating both measurable metric data trends to inform breastfeeding moms and aggregate cohort-level data trends for high level data analysis in an area with a paucity of actual data. When in use, the bra will be fitted to women while breastfeeding or pumping and be able to determine both the milk depletion and residual volume in the milk ducts and the volume of milk produced. After completing additional R&D, the product will perform three different functions: 1) determine the degree of breast emptiness; 2) measure the volume of milk expressed per session; 3) detect early risk of clogged ducts to avoid mastitis.